US-Mexico Cooperative Research: II Iberoamerican Congress on Geometry: Guanajuato,Mexico, January 2001

0086326
Irwin Kra

This US-Mexico award will help to fund participation by senior and junior researchers and students in the 2nd Iberoamerican Congress on Geometry, to be held in Guanajuato, Mexico, January 2001 on the general topic of Riemann surfaces. Organized by Prof. Irwin Kra of SUNY at Stony Brook and Prof. Xavier Gomez-Mont of the Centro de Investigacion en Matematicas (CIMAT) in Guanajuato, the meeting will continue and expand the activities initiated at the 1st Iberoamerican Congress held in Chile in 1998, promoting international collaboration by bringing together researchers from Latin America, Europe and the U.S.

The main themes for the discussions will be automorphic forms, theta functions and Poincare theta series; discrete groups and Teichmuller theory; maps on surfaces, Galois groups, and Klein surfaces; complex dynamics and ordinary differential equations. Emphasis will be on recent results and new methods through workshop sessions in the various themes of the meeting. Expository talks on important topics will be presented and conference results will be published in a proceedings volume available to the mathematics community.